Aligning Curriculum Materials With National Science Education Standards: A Planning Conference

9552981 Bybee This project is to convene curriculum developers with the specific task of addressing issues of aligning materials with the National Science Education Standards. The outcome is a report that describes the proceqs and recommendations for aligning curriculum materials with standards. The term align refers to the comprehensive definition as to different ways states and school districts improve curriculum. The project addresses some of those ways including developing new materials, adopting national programs, and adapting extant materials.